BIGDATA: F: Compositional Learning, Maps and Transfer: Statistical and Machine Learning on Collections of Data Sets

One of the landmarks of human intelligence is the ability to not only find solutions to hard problems, but to learn from past experiences and accumulate knowledge that may be (partially) transferred for quickly solving new problems. This project will develop novel foundational techniques for learning compositional rules, from collections of data sets and machine learning problems. The building blocks that the investigator will develop enable sharing of learning across multiple data sets and modalities. A first building block will enable machine learning algorithms to store solutions to past problems and use maps and abstractions to transfer knowledge to new problems. This requires efficient techniques for learning maps, how to compose them to enable knowledge transfer, all in a way that is compatible with the representation of the problems and their solutions, which also need to be automatically learned. These ideas will be tested on problems ranging from object and pattern recognition of images to behavior of interacting agent systems, from fusing data sets acquired with different sensors to controlling virtual and real agents. This project will provide general, foundational results in machine learning, which can be applied to applications in virtually any domain of human endeavor.

The investigator will develop new techniques focused on representation and transfer learning, in particular: (i) Compositional Learning: the ability to learn and factorize through composition maps between data sets, and of functions (for classification and regression tasks) on data sets (e.g. the task f may be learned by using the map h to one data set on which learning already occurred and the already-learned function g on that data), in order to enhance both learning rates, knowledge extraction and transfer across data sets and data types; (ii) Map Learning: the ability to efficiently learn, represent, store, recall and apply maps between complex data sets, possibly of different modalities; but also learn maps that transform, at least approximately, one task into another, and transfer knowledge from one task to another; (iii) Representation Learning: the ability to learn how to efficiently represent, store and recall complex data sets, across multiple sensor modalities, and across different levels of abstractions -- for example, learning efficient representations of data from multiple types of sensors, learning of classifiers and regression functions, or learning interaction kernels in agent-based systems, as well as transfer those functions across sensor modalities, data sets, dynamical systems. While advancing current state of art techniques in each of these learning abilities, the research will tackle applications in learning invariances and performing object recognition tasks in images, detecting whether objects in an image are new or known, learn interaction rules from observing trajectories of interacting agent systems, and implement the ideas of compositional learning in the context of learning systems both virtual (for examples, using the OpenAI challenges) and real (for example, using robots), on sequences of tasks of increasing difficulty.